New Mexico Collaborative for Excellence in Teacher Preparation

The purpose of the New Mexico Collaborative for Excellence in Teacher Preparation (CETP) is to improve the science, mathematics, and technology preparation of future K-12 teachers and their effectiveness as educators in these vital areas. The goal will be achieved by accomplishing five exciting objectives: Reforming content and teaching by designing an innovative, integrated curriculum Developing policies which require improved math and science preparation of teachers Supporting novice teachers through a strong support system during critical early years Increasing diversity in the teachin profession through innovative recruiting, retention, and instruction which serve diverse groups, particularly American Indians Disseminating results - including innovative materials - to instutions nationwide The New Mexico CETP represents a partnership of five universities, four community colleges, 11 public school districts, two state agencies, and two national laboratories. This proposal is the result of a two-year planning effort by these partners. Among the innovative features of the New Mexico CETP are novel plans for: 1) Science, mathematics, engineering, and technology (SMET) departments to integrate future teachers into their culture; 2) Teacher placement in the schools and early professional development, and 3) Mechnisms to recruit individuals who already have degrees but either are not certified to teach or lack a strong SMET background. The collaborative's partners believe this program will provide a grand change in teacher education in New Mexico by improving the preparation of teachers in SMET fields.